Soot Initiation in Diesel Environments

Fundamental research is combustion is being conducted. During Phase I, a systematic study of the mechanisms involved in the formation of soot at high pressure conditions relevant to diesel engine operation was conducted. A more thorough study will be performed to validate and elaborate on these results. Shock tube measurements are proposed for a variety of molecules over a range of pressures from 1 to 40 atm. A larger number of optical (including laser) diagnostics at various wavelengths will be validated and used to investigate kinetic mechanisms of soot initiation as well as soot particulate growth.